Multielectron Atoms in Intense Laser Fields

9876965
van Woerkom
The research in this project is aimed at understanding the interaction of high intensity, ultrashort pulse laser light with complex atoms. The goals are to: (a) study multiphoton ionization beyond the single active electron model; (b) study very high order above threshold ionization in one and two electron atoms; and (c) develop a unified picture of photoelectron spectra and ion charge states. The measurements will focus on the analysis of ion yields, electron energy distributions, and angular distributions of photoelectrons in order to establish a unifying theory of high field processes in atoms.